The Isovector Nuclear Response

Research will be carried out in nucleon scattering and charge exchange reactions at LAMPF and IUCF. Polarization observables and differential cross sections will be measured. This work will improve our understanding of effective interactions and the limits of many-body effects in quasifree knockout and delta production in complex nuclei. In addition, studies will be carried out at Fermilab regarding nuclear decay following deep inelastic muon scattering. Improved understanding of the recoil quark hadronization process is sought. Limited in-house studies of neutron emission following low energy reactions will be conducted with a tandem van de Graaff accelerator.